1997 Gordon Research Conference on the Physics and Chemistry of Laser Diagnostics in Combustion

ABSTRACT Partial support is provided for the 1997 Gordon Research Conference on the Physics and Chemistry of Laser Diagnostics in Combustion. This Conference is scheduled for July 6-11, 1997 in Plymouth, NH. This award will facilitate the attendance of students and young investigators at the Conference.